Algebraic and Geometric Topology

DMS-0204169
Laurence R. Taylor
William G. Dwyer
E. Bruce Williams

This is a proposal in algebraic topology, and deals primarily
with questions in stable and unstable homotopy theory. The
stable side has to do with the study of ring spectra. One goal
is to study duality in stable homotopy theory and relate it to
classical types of duality for commutative rings; a possible
outcome is a clearer understanding of Gross-Hopkins duality.
Another goal is to study spaces of associative ring structures
from a general deformation theory point of view. On the unstable
side, the proposal envisages a conceptual classification of
p-compact groups (especially at the prime 2), a comprehensive
theory of spaces of natural transformations between various
familiar functors, and a study of the homology of homotopy
limits. There are also geometric topology components involving smoothings of four-space, L-group calculations, and questions
related to Riemann-Roch theorems for Waldhausen K-theory.

In a general sense, the proposal deals with the problem of
understanding geometric shapes, especially shapes with more
than three dimensions. These shapes (called spaces) can arise,
for instance, as the collection of all states of a physical
system, or the collection of all configurations of a
complicated mechanical device. The basic goal is to develop
a method for describing spaces in terms of numbers and other
algebraic objects, in the expectation that this will make it
possible to quantify the subtle geometric characteristics of
spaces, and allow for the study of relationships betweens
spaces of various types. Some spaces, called manifolds, are
particularly symmetrical, and among other things the proposal
involves studying the associated symmetry properties of their
algebraic invariants.